Conference on Social Representations, CUNY, October 9-10, 1998

The theoretical framework of social representations offers an important perspective for social psychologists concerned with cultural beliefs, media influence, and the dynamics of change in our understanding of social phenomena. During the past 20 years, enthusiasm for this perspective has grown in Europe, Latin America, and other parts of the world. Yet, social psychologists in the United States are generally unaware of the theory and its potential contribution to the discipline. The proposed conference will introduce the theory of social representations to an American audience. The conference is scheduled to be held at the Graduate Center of the City University of New York on October 9 and 10, 1998. The conference is expected to lay the groundwork for future collaborative and developmental work at the international level.